Block Travel for U.S. Researchers to Attend the Fifth Bulk Power Systems Dynamics and Control Symposium in Onomichi, Japan on August 26-31, 2001

0123414
Sauer

This project supports the travel of U.S. academic researchers to attend the fifth in a
series of major international symposia on bulk power systems dynamics and control. This
particular symposium will be held in Onomichi City, Japan on August 26-31, 2001 and will
focus on "Security and Reliability in a changing environment". The purpose of this
project is to stimulate participation by U.S. faculty and students by providing a portion
of their travel expenses.